Postdoctoral Research Fellowships in Chemistry

9403174 Shear Dr. Jason B. Shear has been awarded an NSF Postdoctoral Research Fellowship in Chemistry. Dr. Shear received his doctoral degree from Stanford University under the supervision of Professor Richard Zare. Dr. Shear will continue research at Cornell University under the sponsorship of Profesor Watt Webb. His postdoctoral research will involve technique development and application of laser scanning fluoresence microscopy imaging to study electrophysiological events in neurons. Longer term, he plans to develop and utilize other fast analytical techniques for characterizing dynamic chemical events in biological systems. The Postdoctoral Research Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D.s and attract them into meaningful careers in contemporary chemical research and teaching.